EAGER: Collaborative Decision Processing for Dynamic Spectrum Access in Programmable Wireless Networks

Dynamic spectrum access (DSA) technologies are emerging as a promising mitigator against spectrum congestion resulting from the explosive growth in commercial and government wireless systems and services. One remaining challenge is the ability to establish reliable access to sufficient spectrum while avoiding harmful interference to other users when operating with imperfect situational awareness (SA). This research effort is developing the technical underpinnings and system concepts for reliable DSA operations with incomplete and inaccurate SA in programmable wireless networks (PWN). A multi-disciplinary approach is pursued, combining elements of communication theory, multiattribute decision theory, distributed systems theory, and behavioral economics theory. It specifically develops a decision-theoretic core that operates over imperfect SA information, determining what spectrum access opportunities to pursue as well as what information to gather for increased awareness. Information acquisition algorithms encompass access to dynamic and static data sources as well as distributed sensing and fusion approaches for combining data from multiple collaborative PWNs. Representation and reasoning of uncertainty is accomplished by Bayesian decision networks and probabilistic inference technologies. System performance is evaluated and validated via newly-generated spectrum scenarios and existing data collected in previous efforts. The technological developments enable PWN behavior and performance evaluation with respect to technical, regulatory, and economic domains. The research outcome can accelerate DSA fielding and broaden DSA operations to improve public safety and wireless broadband access. Research results will be disseminated through technical publications, conferences, and PWN community collaboration. They will also be integrated into regular classroom, workshop, and short course teaching.